The Relativistic Optical Model at Intermediate Energies

This award supports basic research in theoretical nuclear physics. The research deals with the relativistic treatment of nuclear reactions which is required by the new and forth coming national experimental facilities. The work will investigate the nuclear optical model and its extension to coupled-channels treatments of nuclear reactions. Particular attention will be made on determining spin-observables within the relativistic framework.